Order of Magnitude Instruction Level Parallelism

This project is exploring a new approach to instruction-level parallelism. The new approach, disjoint eager execution, uses branch prediction and eager execution to maximize the number of instructions that can be usefully executed on each cycle. The set of branch paths forms a tree, in which each node represents a branch instruction and each edge represents the code executed between branches. In disjoint eager execution, all of the most likely code segments are candidates for speculative execution, rather than only those code segments on the most likely path. In other words, a subtree of instructions is executed that may not be a simple chain. Preliminary research has included some simulations on benchmarks suggesting that speedup of about 30 is possible. This project includes more comprehensive simulations to determine the benefits, along with architectural studies to determine the effects of parallelism on cycle time of the machine.